Testing the Shelf-Nutrient Hypothesis by Examining the Oceanic Phosphorus Cycle on Glacial Timescales

Filippelli

Abtsract

The overall goal of the project is to evaluate Phosphorus accumulation rates at an array of sites using ODP cores and targeting glacial-interglacial (G-I) time scales. These P accumulation rates (PAR) will then be used to construct time-dependent mass balance for the oceans, to evaluate how this has changed on G-I time scales. Subsidiary goals are to contrast PAR to other proxies for bioactive elements. The understanding how the P budget evolves through time is important for insights into how the coupled ocean-atmosphere system.